U.S. - UK Cooperative Research: Formal Specification of Software Systems

This award will support collaborative research between U.S. and British computer scientists in the area of the formal specification of software systems. The U.S. investigator is Dr. Stephen Fickas; the British researchers involved are Dr. Alan Bundy, Department of Artificial Intelligence, University of Edinburgh, and Dr. Anthony Finkelstein, Computer Science Department, Imperial College of Science and Technology, London. The construction of a complete and consistent software specification is critical to modern software engineering methodologies. At the same time, a characterization of the construction process itself remains an open research question. In essence, formal specifications to drive our implementation systems are needed, but the means of constructing such specifications in any disciplined manner are still lacking. The principal investigator proposes to collaborate with two U.K. research groups, one at the University of Edinburgh and one at Imperial College, London, in an effort to both formalize and automate a model of specification design. Up until this time, each of the three groups has focused on a different aspect of the specification problem: Edinburgh has focused on mapping from informal descriptions to formal specifications. Imperial College has focused on identifying necessary specification activities, and tracking the dependencies among them; the principal investigator has focused on knowledge-based approaches to specification analysis. Dr. Fickas, in cooperation with the two U.K. groups, will lead an effort to integrate the three approaches into a more general model of specification construction. The results will be twofold. First, the integration attempt itself will force each of other three current models to become more refined. Second, Dr. Fickas plans to incorporate parts of the Edinburgh and Imperial models into his existing computer-based system, thus providing further extensions to an automated tool for specification construction.